Bridge to the Doctorate at California State University, Los Angeles: CSU-LSAMP-BD Cohort 14

The Louis Stokes Alliances for Minority Participation (LSAMP) program assists universities and colleges in diversifying the STEM workforce through the development of highly competitive students from groups historically underrepresented in STEM disciplines: African-Americans, Alaska Natives, American Indians, Hispanic Americans, Native Hawaiians, and Native Pacific Islanders. The goal of the LSAMP Bridge to the Doctorate (BD) Activity is to increase the quantity and quality of STEM graduate students from underrepresented populations, with emphasis on Ph.D. matriculation and completion. BD programs implemented in the nation's institutions of higher education contribute to addressing one of the objectives in NSF's 2014-2018 Strategic Plan, namely to "integrate education and research to support development of a diverse STEM workforce with cutting-edge capabilities." For the U.S. to remain competitive globally, it must provide exceptional educational preparedness in STEM areas that underpin the knowledge-based economy.

The performance site for this LSAMP Bridge to the Doctorate Activity is California State University, Los Angeles, one of the 23 California State University campuses included in the California State University-Louis Stokes Alliance for Minority Participation (CSU-LSAMP). The project provides a Master's level "bridge" to doctoral-level study for a cohort of 12 graduates of LSAMP undergraduate programs. The Master's-level experience is designed to increase participant persistence and competencies in STEM and their advancement to Ph.D. programs following completion of the Master's degree. In addition to providing substantial financial support to enable students to focus full time on a two-year program of Master's-level course work and research, the project provides an integrated set of activities designed to advance BD students toward completion of doctoral level studies. Activities include: (1) monthly and semester meetings with the BD Project Director to monitor student progress and provide comprehensive advisement; (2) a workshop series focused on information/tools needed for adjustment to and success in graduate school; (3) writing support; (4) weekly professional seminars; (5) community building activities; (6) "connecting" Fellows to doctoral programs through collaborations with faculty and programs at Ph.D. institutions; and (7) assistance with applications to Ph.D. programs, financial aid and fellowship programs.